SGER: Gas phase nucleation of diamond: synthesis of nano-diamond powders

Abstract:
The main objective of this proposal is to determine whether novel microplasma reactors developed by the PI can provide a method for homogeneous gas-phase nucleation of nanoscale diamond crystals. Three types of molecular seedings will be attempted: the cagelike hydrocarbon molecule adamantane, hydrocarbon-generated graphitic soot, and silane-generated silicon. All three routes have hypothetical reasons for success, but testing will be required to explore the science and technological feasibility. Furthermore, the PI's atmospheric-pressure microplasmas have shown promise but have not been tested for these purposes. The intended broader impact of the proposed work is creating a new form of diamond that could be imprinted onto surfaces or more easily derivatized, offering electronic, sensor, and biomedical applications.